CAREER: Asymptotics of random processes and their applications

The proposal aims to advance statistical theory for random
processes that exhibit features like long-range dependence and
nonlinearities, and to educate both statisticians and others
scientists in this new exciting area. Compared to the
well-developed theory under the independence assumption, it is
considerably more challenging to establish a limit theory for
processes with such features. The Principal Investigator proposes
a powerful martingale based method and studies spectral
estimation, empirical processes, nonparametric estimation and
other related asymptotic problems for such processes.

Processes with long-range dependence and nonlinearities occur in
various fields, including computer networks, communication,
finance, geology, hydrology, econometrics and atmospheric science
among others. Applications of the research results developed in
the proposal would help test and justify claims made by scientists
in such fields. In particular, the PI develops statistical
methodology to identify trends in temperature and ozone sequences
and provides statistical reasoning for meteorologists' claims on
climate change patterns.